The Alignment of DNA Sequences in Systematic Biology: A Parallel Approach

9313720 Wheeler This award will support work to develop software for alignment of DNA sequences in a network of workstations. The alignment of DNA sequences has implications in systematic biology, where comparative studies give insight into relationships between organisms and the pattern and the process of evolution. These algorithms for alignment will be developed for the parallel processing environment offered by the network of workstations. The award will test the scalability of these algorithms as one moves to more processing units in the network. ***